HF Radar Studies of the Geospace Plasma Environment

Since 1983, the National Science Foundation has funded research with a phased-array HF radar at Goose Bay, Labrador. This radar was constructed by The Johns Hopkins University Applied Physics Laboratory to study the formation electron density irregularities in the E and F regions of the high - latitude plasma ionosphere and to study the lagre-scale structure and dynamics of high-latitude convection. This grant provides support for studying the dynamics of the convection response in both the dayside and nightside ionosphere to changes in the interplanetary magnetic field and solar wind. Additional projects to be studied include convections structures resulting from oscillatory or transient magnetospheric boundary disturbances and the formation of high-latitude ionospheric irregularities. A portion of the grant will be used to continue to maintain a data base of continuous HF radar observations of the high-latitude ionosphere which will be available to other scientists. ***